Mathematical Sciences: Random Graphs

The principal investigator will study the vertex and edge connectivity of the giant component of a randomly evolving graph. One aspect of an Erdos-Renyi randomly evolving graph is a sudden appearance of the giant component, right after the moment when the average vertex degree becomes equal to 1. This research will lead to a better understanding of the likely behavior of such important extremal characteristics of the random graph as the chromatic number, the independence number and the matching number. The investigator will also study the giant component phenomenon in two other models, bipartite random graph and a Flory-Stockmayer-Whittle model of polymerization process. Finally, the investigator will work on fast probabilistic algorithms for Hamilton circuits and matchings.